Research Experiences for Undergraduates in Chemistry at Miami University

Professor Gilbert E. Pacey and other members of the Chemistry Department of Miami University (Ohio) are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend twelve (12) weeks each summer actively engaged in a variety of research projects. Projects range from analysis of plant phenolics to fabrication of PVC-membrane ion selective electrodes. All projects will be designed such that students may continue the work back at their home institutions under the guidance of a faculty member at that institution. Career information will be provided by industrial, academic, and government chemists during organized seminars. All students will have an opportunity to participate in a Chemical Abstracts Literature Search Workshop.